Workshop: 2011 Workshop on Laser Processing and Energy applications to be held in Berkley, CA

1048641
Grigoropoulos

The Workshop on Laser Processing and Energy Applications, to be held in Berkeley, California in 2011, will provide a venue for researchers, industrial practitioners and educators to identify challenges and opportunities pertaining to laser-based manufacturing of energy devices. Topics include but are not limited to: (1) fabrication of power generation devices such as photovoltaics and solar-thermal as well as solar-hydrogen hardware, (2) fabrication of energy storage devices such as batteries, supercapacitors, and hydrogen storage units, and (3) manufacturing of efficient electronic displays, lighting, communication devices, and sensors.

Intellectual Merit: This award provides support for approximately 20 experts and 10 students to attend the workshop. The agenda will include technical presentations and panel sessions culminating in a comprehensive report that will identify specific scientific and engineering issues pertaining to laser processing in energy applications. A report will be generated that will be readily accessible on an appropriate website, and a review article will be published in the archival literature.

Broader Impacts: The workshop topic has broad application to a wide array of manufacturing challenges relevant to emerging energy applications. In addition, current and future education and training needs related to laser processing in energy applications will be a critical component of the workshop. The organizers will ensure participation by a diverse cadre of attendees, including those from underrepresented groups.